Research Experiences for Undergraduates at The University ofNorth Carolina at Chapel Hill

This award provides funds to the Program in Molecular Biology and Biotechnology, an independent campus-wide unit created to promote genetic engineering research and education at the University of North Carolina, Chapel Hill, to continue its Research Experiences for Undergraduates (REU) Site for an additional three years. Academically promising students chosen from a national pool will participate in ongoing research carried out by a select group of PMBB faculty. Emphasis will be placed on recruitment of students with limited research opportunities and on students from groups historically under-represented in the sciences. A total of 12 REU students will participate. Nine students will be funded by the NSF, two students will be funded by the UNC School of Medicine, and one student will be supported with funds from the Division of Health Affairs. The overall goals are to (1) introduce students to a diversity of biological research and techniques, particularly in molecular biology and molecular genetics, (2) familiarize students with the process of independent research, (3) promote development of laboratory and communication skills, and (4) provide guidance to aid students in selection of graduate programs. To meet these goals students will (1) work for ten weeks with faculty on projects having meaningful scientific objectives and derived from ongoing research, (2) attend weekly research topic discussions with each faculty preceptor, (3) attend a meeting in which Directors of Graduate Studies from various departments provide students with advice and information about Ph.D. programs (4) visit campus scientific core facilities (eg, protein sequencing and analysis), laboratories at the UNC Hospitals that employ molecular techniques in medical diagnoses (eg, DNA Diagnostic Facility), and pharmaceutical establishments in Research Triangle Park, and (4) present the results of their research in talks before the campus community.